Crustal Reflection Profiling in Contrasting Archean Terrains in Minnesota: The Oldest Crust in the U.S.

One of the biggest challenges facing earth scientists is to decipher the nature and evolution of Archean crust, the greatest crustal-forming episode involving questions of crustal thickness, composition, horizontal vs. vertical tectonic regimes and evolution; i.e., underplating, and crustal accretion. COCORP (Consortium for Continental Reflection Profiling data from Minnesota and its reanalysis have provided new information on the nature of the Archean and raised critical questions. Reinterpretation of the COCORP) data indicates a moderately dipping suture between early and late Archean marked by a 2- km-thick mylonite zone, a thrust faulted Animikie basin, and an ancient gneiss terrain that is complexly folded on subhorizontal axial planes. The subhorizontal folds continue to a depth of almost 30 km and pass into a horizontal discontinuous structural regime in the lowermost crust above a non-reflective Moho that may represent a phase change. The principal investigator proposes a comprehensive series of seismic reflection recording experiments using 216 channels in two sets of instruments simultaneously at near and wide-angel offsets. Both the shallow and lowermost crust will be imaged at offsets long enough to determine velocities. Crossing profiles will be recorded across the ancient gneiss terrain, the Archean suture (GLTZ) and the Animikie basin, and the lower crust and Moho will be a prime target. Explosives as well as vibrators will be used for wide-angle recording. Research will be carried out in cooperation with the Minnesota Geological Survey who plan to drill shallow (100m) test holes to sample basement along the seismic lines. Results will provide decisive new information on nature and genesis of Archean crust.